Optimal-Diameter Routing and Error Resilience in Peer-to-Peer Networks

Peer-to-peer (P2P) systems have recently become a very important part of the Internet.
Unprecedented popularity, low overhead, and high scalability of these networks
make them highly appealing to a wide range of end users. This proposal studies
fundamental performance limitations of the existing and recently proposed
peer-to-peer architectures and examines inherent scalability issues of these networks.
Outside the P2P community, this project provides a better understanding of
large-scale self-reconfiguring systems and leads to the development of new
algorithms for future implementation of various information-centric
routing infrastructures.